CIF: Medium: Collaborative Research: Tracking low-dimensional information in data streams and dynamical systems

Many applications of significant societal impact are modeled by
complex dynamical system behavior, including the (life, physical
and social) sciences, medicine, economics, law, urban development,
international politics and global conflict. Fortunately, recent
advances in sensor technology have allowed observation of these
phenomena at an unprecedented scale. Unfortunately, the volume and
complexity of available data present many challenges to extracting
meaningful information about these systems. Low-dimensional models
serve as a useful structure for understanding the information in
high-dimensional signals and systems. However, this information
often changes over time, and so these models can further be
improved by exploiting temporal dynamics. This project is concerned
with developing new methods for tracking changing low-dimensional
structure in data streams and dynamical systems, particularly in
settings where the observations may be missing, incomplete,
corrupted, or compressed.

The first research aim in this project is to develop new and
substantially improve existing techniques for tracking
low-dimensional structure and, in particular, to extend tracking
capabilities far beyond conventional signals to much more general
data sets with intrinsic low-dimensional structure. A second
research aim is to develop new tools for tracking low-dimensional
structure in systems jointly with estimating the content of
time-varying signals and data sets. A third research aim is
concerned with higher-dimensional and more complex dynamical
systems, and the goal is to develop improved methods that exploit
low-dimensional structure to perform quantitative and qualitative
analysis in systems that are too complex and high-dimensional for
system identification. In a fourth, educational aim, accessible
K-12 outreach materials are being developed for dissemination
through an online digital library.